SHF: Small: Communication Architecture Designs for Future Heterogeneous Systems

Big data have emerged in various data-centric applications including deep learning and graph processing. These applications show characteristics such as stream processing or irregular data access patterns. However, modern CPU-based architectures with general-purpose instruction-set architectures and memory incur large performance overheads. To remedy this problem, adopting application-specific components and heterogeneous processing units, like GPUs and accelerators, is gaining popularity. As data size increases, more efficient data processing is required, which demands high-density computation and larger bandwidth for data movements, which motivates the need for large-scale heterogeneous systems. Unlike CPU-based systems, the communication in heterogeneous systems may have dynamic and flexible requirements for both latency and throughput depending on applications and involved processors. In addition, since designing a large monolithic chip is impractical due to high cost and low yield rate, cost-effective and design-efficient chiplet-based modular designs are preferred.

This project studies the design of communication architectures for heterogeneous systems to accelerate data-centric applications. It includes research in the fundamentals of interconnects such as deadlock-freedom, routing, flow control, and topology designs, to provide correct functionalities and fulfill heterogeneous communication requirements. To reduce data movements inside the architectures, in-network computing and communication-acceleration solutions through specialization will be investigated to improve performance and energy efficiency of the heterogeneous systems.